Support for Planning Multiuniversity BITC Centers

The University of Louisville plans to join the existing Industry/University Cooperative Research Center for Biomolecular Interaction Technology. The addition of the University of Louisville will form a multi-university center with the University of New Hampshire. The University of Louisville brings expertise in thermodynamics, microcalorimetry, and the development of novel high-throughput instruments to the consortium.